SHF: Small: Computer-Aided Grading, Feedback, and Assignment Creating in Massive Online Programming Courses

Massive Open Online Courses (MOOCs) are widely regarded as a
revolutionary innovation; however, traditional instructional
techniques do not scale to MOOCs with tens of thousands of students.
This project aims to design a set of algorithmic tools to partially
automate three of the most basic instructional processes - grading
assignments, giving students personalized feedback, and creating new
assignments - in MOOCs that teach computer programming. Such tools
have the potential to significantly raise the productivity of
instructors in these courses, and give students a far more effective
educational experience than what they currently receive. They can also
guide the development of future MOOCs on programming, and play a role
in making the MOOC model reach its full potential.

The algorithms developed in this project draw on ideas from several
different areas of computing. They leverage advances in automated
reasoning about software like automatically finding bugs in
student code and suggesting fixes, and exploit statistical learning
techniques that mine databases of previously-completed assignments and
infer aggregate statistics about a class. Finally, the research has a
dimension of human computation, for instance seeding logical and
statistical analysis techniques with data obtained through peer
evaluation. These methods apply to any programming course; however,
the investigators will evaluate them by deploying them in a specific
MOOC on Python programming that they teach.